Synthesis, Structure and Properties of Compounds Containing Interacting Metal Clusters

9813726
Johnson

This proposal focuses on the synthesis, structural characterization, and measurement of the properties of ternary compounds My'M6X8 containing discrete clusters of metal atoms where M' is a cation, M is either Ta, W or Nb and X is either S, Se, Te. The synthesis of these new compounds will be approached using modulated elemental reactants where the challenge will be in controlling nucleation of the amorphous reaction intermediates. Several potential approaches to seed or otherwise favor nucleation of the desired compounds are proposed. The few known examples of compounds with similar structures all have unusual properties which are thought to be a consequence of their cluster based structure. These correlations will be explored.
%%%
The inability to prepare new compounds with desired structures, compositions, and properties has long limited research in solid state chemistry and, as a result, the advancement of materials science and engineering. Modulated elemental reactants previously developed will provide control of reaction pathways to yield kinetically stable compounds with unusual properties that will enhance the availability of device materials of possible commercial interest.
***